MARGINS Theoretical and Experimental Institute: Inside the Subduction Factory

Funds are provided to hold a MARGINS theoretical and experimental school where the subduction zone will be the topic of a 4-day short course followed by a 1-day workshop. The will support the emerging multi-disciplinary study of the subduction zone and focus on the geochemical and geodynamic processes at intermediate depths (50-150 km), a region where mass transfer plays a fundamental role in the evolution of subduction zones. A steering committee will select the speakers and attract participants. Funds will pay for full or partial travel of about 65 participants, although a total of 100 participants are expected.